Arabidopsis 2010: Pre-mRNA Splicing Signals in Arabidopsis

Existing genefinders use information about splice sites and differences
between exons and introns, but do not explicitly incorporate information
about sequences known as splicing enhancers, which promote incorporation
of exons into mRNA. This is a project to characterize exonic splicing
enhancers in Arabidopsis. Although splicing enhancers likely function in
splice site selection in many plant genes, and contribute to the
regulation of alternative splicing, plant splicing enhancers have not
yet been described in detail. Computational analysis of a database of
Arabidopsis exons and introns will be used to identify candidate
splicing enhancer sequences. The role of these sequences, and sequences
from genes that are known to be alternatively spliced, will be tested in
transgenic Arabidopsis using a splicing reporter construct. The activity
of these enhancers will be examined in transgenes that depend on exon
inclusion for expression. This will include analysis of the
tissue-specificity of splicing enhancer activity and should provide an
extensive database of information about the role of particular sequences
in promoting splicing. This project will generate:

1) 2,000 publicly available transgenic lines, available through the
ABRC, carrying splicing reporter genes with defined candidate splicing
enhancer sequences

2) A description of marker gene expression for each splicing enhancer
candidate. This will consist of a description of all expression patterns
and images of typical and selected patterns, available through the
internet (http://www.tigr.org/2010-splicing/) and linked to the seed stocks

3) Improved genefinding and gene annotation available as improvements to
the existing GlimmerM server (http://www.tigr.org/softlab/glimmerm/).

Effective use of the complete nucleotide sequence of Arabidopsis
requires improved gene annotation. Information about the messenger RNA
products of genes is incomplete. This project will provide to the
scientific community both experimental data on splicing enhancers that
will improve gene annotation, and genetic material for further study.